Central States Section of the Combustion Institute (2014 Technical Meeting, March 16-18, Tulsa, OK)

This proposal seeks funding to support travel of student registrants at the 2014 Combustion Institute Spring Technical Meeting from March 16-18, 2014,in Tulsa, Oklahoma, hosted by The Central States Section of the Combustion Institute (CSSCI). The broader objectives
of The Combustion Institute focus on discovery, advancement, and application of combustion/fire science and engineering. By participating in the meeting students and student researchers will have the first-hand interaction with experts, as well as peers, in exchange ideas, thus promoting their education, learning, while also fulfill recruitment and retention of students in STEM fields.